Acquisition of Near-Surface Geophysical and Sampling Equipment for Earth Surface Processes and Quaternary Stratigraphic Research

0079588
FitzGerald

This award, made through the Major Research Instrumentation (MRI) Program, provides partial support of the costs of acquiring a suite of near-surface geophysical and sampling equipment for research on the Quaternary sedimentology and stratigraphy of barrier island systems, glacial geomorphology, and geoarchaeology at Boston University. Specifically, instrumentation to be acquired includes a ground penetrating radar system (GPR), a trailer mounted hydraulic drill core system and truck, and an electronic total survey system. Acquisition of this equipment will facilitate planned and ongoing research on the sedimentation processes responsible for the development of Holocene barriers in Maine and Massachusetts, studies of Quaternary glacial facies in high latitude alpine environments in an effort to correlate any observed climate signals to other well studied and documented millennial-scale climate events recorded in ice cores and deep marine sediments, and studies of the Miocene landscape evolution of the Dry Valleys of Antarctica.
***